Atmospheric Fluid Dynamics

9417864 Busse The objective of this research is the numerical simulation of fluid flows forced by buoyancy. Through an analysis of symmetry breaking bifurcations, the transition from simple to complex flows will be investigated as a function of both the Reynolds and Rayleigh numbers. These techniques should identify the structure and evolution of flows with secondary and tertiary bifurcations for useful meteorological examples. ***